RUI: Molecular Analysis of the Poly-Beta-Hydroxybutyrate Biosynthetic Pathway

The goal of this project is to analyze the molecular structure of the poly.beta.hydroxybutyrate biosynthetic pathway (PHB). The PHB biosynthetic pathway has been cloned from Alcaligenes eutrophus into Escherichia coli where it is expressed. This expression can be induced via oxygen limitation or nitrogen limitation. Proteins encoded by the pathway will be specifically translated in vivo and then analyzed by denaturing and non.denaturing polyacrylamide gel electrophoresis. Northern blot hybridization and nuclease protection assays will be employed to determine the mode of transcription and start of transcription, respectively. The three enzymes that constitute the pathway will be initially purified utilizing large.scale purification techniques followed by fast protein liquid chromatography (FPLC). Final purification will be by preparative isoelectric focusing. The proteins will be characterized as to their size, subunit structure, partial amino acid sequence. Putative PHB transcriptional control regions will be located using PHB:lac fusions in concert with an induction assay, and agents that induce PHB biosynthesis will be identified. This is a proposal to lay the groundwork for the molecular and genetic study of a metabolic pathway leading to the production of a biodegradable polymer in a little studied species of soil bacterium. The bacterium seems to produce this polymer as a means of storing energy during times of stress, but the mechanism by which it regulates polymer production is completely obscure, as are regulatory mechanisms in most species of soil bacteria (except for a small number which have been well studied). The work in this proposal could lead to the discovery of previously unknown mechanisms regulation of gene expression, and is therefore of general interest. It is also of particular interest because of what it may tell us about the natural synthesis of the biodegradable polymer, information which may have important practical consequences. This work is funded under the RUI program, since a great deal of the work is actually performed by undergraduates who would not otherwise easily be able to participate in a serious research program.